Thinking Ahead: A Proactive Approach for Countering Future Internet Malware

Andreas Terzis
Thinking Ahead: A Proactive approach for countering future Internet malware
Johns Hopkins University
0627611

Abstract

Malware continues to pose one of the gravest threats to the Internet.
While existing research efforts are producing promising defenses to
counter today's threats, the landscape is rapidly changing as
attackers become increasingly savvy. In this project, rather than
blindly following the current practice in which defenses trail malware
advances, we apply a first principles approach to Internet
infection. Specifically, we explore a wide range of networked systems,
including corporate networks and emerging wireless and mobile
networks, and examine a list of potentially crippling attack
strategies against these networks. The attacks we explore are faster,
stealthier, or more virulent than current infection
strategies. Moreover, they all share the characteristic of
overwhelming existing defenses. The goals of this project are to
develop analytical models that capture the unique behavior of such
malware, and to use these models to gain a better understanding of
emerging threats. Armed with this knowledge, we explore novel defenses
that include camouflaged responders resilient to evasive attacks and
distributed mobile network monitors capable of tracking mobile
infections. We fully anticipate that results from this research will
provide guidelines on how to secure future network architectures
against emerging threats.